50th Anniversary Technical Session: SSRC - Link Research & Practice

9315661 Ricles The Structural Stability Research Council (SSRC) will conduct its 50th anniversary technical program in 1994. The emphasis of the program will be on the state-of-the-art and future developments of the major stability topics. A vision of stability design practice ten to twenty years in the future is required to establish research goals and to consider how research results and new technology can be implemented in design practice. With this in mind, the theme of the entire conference is "SSRC-LINK BETWEEN RESEARCH PRACTICE."